Mathematical Sciences: 1997 Barrett Lectures

9618915 Lenhart This award will provide partial support for the 1997 Barrett Lectures, a conference to be held at the University of Tennessee from March 20- 22, 1997. Support will be provided for graduate students and recent doctoral recipients. The theme of the conference is Control Theory and Applications. The Barrett Lectures will feature control of ordinary differential equations and partial differential equations and applications. The program will include both plenary lectures and a technical program, including both invited talks and contributed papers. Applications to be addressed include manufacturing systems, environmental problems, and optimization.